Fellows for the Advancement of Mathematics Education2 (FAME2)

Long Island University will conduct a three-year program for 900 middle and secondary school mathematics teachers in New York. This project, called "Fellows for the Advancement of Mathematics Education2 (FAME2)", builds on a highly successful and widely replicated NSF project FAME that has been ongoing over the past three years. Participants are Fellows (leaders) and the middle group of teachers considered as possible future Fellows. Enhancement activities will include training of under-prepared teachers by the Fellows. The Fellows will serve as school building leaders and form mathematics resource teams, with responsibilities for inservice and parent training, pupil assessment, promulgating the Standards, curriculum development, recruitment, and the selection and training of under-prepared teachers. The project includes the development of a network of schools, universities, and educational agencies. The project includes features designed to increase the participation of under-represented groups in mathematics. Long Island University and the participating districts are contributing an amount equal to 90% of the NSF request.